Growth, Mutation and Recombination in Bacteriophage

Abstract 9402695 In crosses involving either pro- or eukaryotes, genetic exchanges may be nonrandomly distributed with respect to each other, i.e., they may show "interference." The investigation of two systems in which interference is manifest will continue. In both systems, interference may depend on a "machine" that moves along chromosomes. Understanding of these machines will contribute to our understanding of molecular mechanisms of genetic recombination. (1) When the RecBCD recombination pathway of E. coli operates on phage lambda carrying the recombination hot spot Chi, recombinant chromosomes recovered in phage particles have sometimes indulged in a pair of exchanges, one reciprocal and one not. The nonreciprocal exchange occurs not at random but to the right of the reciprocal one on the standard lambda linkage map. The basis for this nonrandom relationship resides in the RecBCD protein, which enters DNA at a double-chain break and travels destructively along the duplex, changing from an exonuclease to a "recombinase" when it encounters the sequence 5'GCTGGTGG3' (Chi). Models for the mechanisms of the two exchanges and for the relationship between them are being tested. (2) In many eukaryotes, the presence of one exchange in a meiotic bivalent reduces the probability of finding an exchange in nearby intervals (chiasma interference). A simple model that unites observations on gene conversion with those on chiasma interference has been developed. The model supposes that conversions occur at random with respect to each other, but that those with associated crossing over are invariably separated by several conversions that lack associated crossing over. Thus, the two kinds of recombination events(one of which is sometimes called "reciprocal" and the other not) are nonrandomly distributed with respect to themselves and each other. Development of the model and testing of it continues. Hypotheses regarding mechanisms underlying the model are being te sted. Such mechanisms may involve a "machine" that travels along the synaptonemal complex resolving double-chain break-repair intermediates such that a fixed number of repair events unaccompanied by crossing over fall between neighboring crossovers. %%% Recombination occurs in almost all organisms, and is responsible for leading to new combinations of genes in offspring as well as protection against damage to DNA and genes. A better understanding of this process should be applicable to many organisms, and could lead to the development of better ways of introducing foreign genes into organisms ("genetic engineering"). ***